SCREMS

The Department of Statistics at Carnegie Mellon University will
purchase a cluster of computers dedicated to the support of
statistical research in a number of applied and theoretical areas.
In addition to advancing science in the applied areas, knowledge of
how to use the parallel processing cluster for statistical research will
disseminate through education of students and visitors and through
postings of algorithms on StatLib, the public repository of data and
software.

The areas of application include estimating uncertainty about the
cosmic microwave background radiation, estimating the signal from in
vivo neuroimages, identifying which genes are related to complex
diseases, and learning how neurons control movement to help develop
brain-controlled prosthetics. Each of these areas is currently being
pursued by faculty and students in the Department, and they will all
benefit from the increased computing capabilities provided by the new cluster.
The statistical research directed toward each of the applications
will produce methodology that will be useful in other areas of science
as well.